Phenomenological Investigations for Introductory Physics

Physics (13)

This project continues the Spelman College Physics Department's revision of the structure and pedagogy of the laboratory sessions associated with its second-semester, calculus-based introductory electricity and magnetism course. The new laboratories are based on student-centered exploration of complex real-world phenomena (design of the wiring for a house and the use of electric fields by fish to sense nearby objects) and include students planning and performing experiments, small-group and class discussions, and metacognitive activities such as reflection. Within constraints set by the instructor, the detailed flow of laboratory activities depend, to a large extent, on choices made by the students. In addition to using existing tests for assessment of content knowledge, newly designed instruments, including a rubric for coding and evaluating video of student work to assess their process skills, are being developed.